Homotopy Algebras and Homotopy Theory

The goal of this project is to explore some applications and potential
applications of homotopy algebras. In algebraic topology, E-infinity
differential graded algebras and related homotopy algebras can be used
to study the homotopy theory of spaces. Other versions of this same
kind of structure can potentially be applied in algebraic geometry to
put ``motivic structures'' on homotopy invariants. There is a close
relationship between E_2 algebras and monoidal categories. There
should be an analogously close relationship between E_3 algebras and
braided monoidal categories. The project also studies the algebraic
K-theory of permutative categories and the close ties between
permutative categories and stable homotopy theory.

Homotopy theory studies those properties of mathematical objects that
do not change under small deformations. These mathematical objects
are often of a geometric nature but the methods of homotopy theory
have been increasingly applied to algebraic ones as well. Homotopy
theoretic properties tend to be accessible to computation by taking
advantage of the invariance under small changes. Since they also
generally retain important information about the original mathematical
objects, homotopy theory is an effective tool for a wide range
of mathematical problems.